NIRT: Integrated Nanophotonics for Quantum Computation and Quantum Information Processing

0507270
O'Brien

This program is a collaborative effort between faculty members at USC and UT
Austin to develop the key nanophotonic components for chip-scale quantum information
processing and to develop improved quantum information processing algorithms and
system level implementations of this technology. The proposed program is a NIRT in the
area of Nanoscale Structures, Novel Phenomena, and Quantum Control. The goal of this
program is to develop technology to emit, manipulate, and detect single quanta. Only
single-photon sources, single-photon detectors, beamsplitters, and phase shifters are
necessary in order to build gates for efficient quantum computation. The PI proposes to
improve the state-of-the-art in these components using a common chip-scale, indium
phosphide compatible, approach. Single-photon sources developed at USC will be
shared with the single-photon detector effort at UT Austin, and similarly, the singlephoton
detectors developed at UT Austin will be shared with the single-photon source
effort at USC. The collaboration will also ensure that the device designs will be
compatible with the eventual integration onto a single InP substrate.

Intellectual Merit: This proposed program will investigate both optically and electrically-pumped,
single-mode, photonic crystal single-photon sources incorporating a single quantum dot
emitting near 1.5 um. These sources will be coupled to a photonic crystal waveguide to
facilitate chip-scale optical processing. Electronic circuits will be designed to drive these
single-photon sources, sense the photon emission, and generate a trigger signal that can
be used in subsequent gate timing. The single-photon detectors will be developed using
Geiger mode avalanche photodiodes fabricated in InGaAs/InAlAs lattice matched to InP.
While the long term goal is to develop a chip scale quantum gate technology applicable
to quantum computation, this technology will find much nearer term applications in
quantum cryptography.

Broader Impacts: The research directions of this program will also impact the classroom teaching at
both USC and the University of Texas. The investigators on this team teach 20 different
undergraduate and graduate courses over the course of the proposed four-year program.
There is also ongoing undergraduate participation in these research groups and the PI expects
6 undergraduates to be involved in this project.